STTR Phase II: Scalable Detector for Multiple-Input Multiple-Output (MIMO) Communication Systems

The broader impact/commercial potential of this project lies in its ability to implement multiple-input
multiple-output (MIMO) detectors of any size. This, in turn, impacts the broad needs of wireless
communications industry that is always in search of more efficient use of the scarce spectral resources.
Since its invention 15 years ago, MIMO has been included in all wireless standards, e.g. WiFi,
WiMAX, and LTE. As of today, MIMO products of sizes up to 4x4 (i.e. 4 transmit and 4 receive
antennas) have appeared in the market, while the most recent standards, such as IEEE 802.11ac WiFi
and LTE-Advanced cellular, have specified MIMO sizes as large as 8x8. For WiFi this can mean more
effective hot-spots in public and workplace settings. For cellular this can mean improved connectivity
in rural areas with fewer base-station towers, having a positive economic impact. Industry activities
that attempt to build larger MIMO systems such as 16x16 are occurring. Massive MIMO networks with
more than 100 antennas at the base stations have recently been proposed for 5G cellular and beyond.
These trends indicate a large market opportunity for the scalable MIMO technology that this project
builds upon.

This Small Business Technology Transfer Research (STTR) Phase 2 project plans to develop and
commercialize a set of intellectual property (IP) software-codes/IP-cores related to multiple-input
multiple-output (MIMO) communications. These cores address the needs of wireless chipset
manufacturers. The main hurdle in the design and implementation of MIMO systems is their
complexity which drives cost and power consumption. The complexity of an optimal MIMO detector
grows exponentially with the number of transmit antennas. The same is true for most of the near
optimal MIMO detectors that have been suggested in the literature and adopted by industry. This
limitation has been the main impediment in developing commercial MIMO systems that support larger
array sizes with increased range and data rate. This project adopts a novel technology that achieves near
optimal performance having complexity that only grows linearly with the number of transmit antennas.
It thus can be used to implement MIMO systems of any size, at an affordable complexity.